Methodologies for the Automatic Verification of Concurrent Systems

Despite more than a decade of research into parallel computing systems, the development of such systems remains a difficult and error-prone undertaking, owing to the subtle interactions in which simultaneously executing components may engage. One way to ensure that such systems behave correctly is to verify them formally; this, however, can be an extremely complex task, and even the development of automated tools has not permitted very large systems to be proved correct. Using the framework of process algebra, the broad goal of this project is to develop automated techniques that enable the verification of large concurrent systems. The project will work along three lines. Methodologies will be developed that exploit the structure of concurrent systems and their specifications to reduce the verification process to a collection of more manageable subproblems that may be solved using existing techniques. Automated tools that support these methodologies will be built on top of an existing tool, the Concurrency Workbench, which provides the basic support needed for the proposed techniques. The utility of the methodologies and associated tools will be evaluated by applying them to the verification of existing "real world" communications protocols.